Coherent Pion Production from Heavy-Ion Peripheral Collisions: ROW Award

The proposal is to start planning for a proposal to calculate coherent pion production from heavy-ion peripheral collisions. Planning includes consultation with other physicists, and testing codes.